Kinetics, Structure, and Properties of Crosslinked Polymer Films Formed by Cationic Photopolymerization

The emission of volatile organic components (VOCs) from curing inks, films and coatings is a leading cause of atmospheric pollution. Volatile organic solvents have traditionally been used to impart desirable viscosity and cure rate properties to ink and coating formulations. An ink or coating formulation must be sufficiently fluid to be easily applied (often onto a rapidly moving substrate through a series of transfer rollers), but must cure rapidly to a hard film. Historically, these processing demands have been met through the use of a rapidly evaporating organic solvent in the ink and coating formulations. When these volatile organic solvents enter the atmosphere, they result in the formation of smog and air pollution. There is a need for the development of high performance inks and coatings that will not emit VOCs to the atmosphere. Cationic photopolymerizations of diepoxides and bisvinyl ethers exhibit potential for the development of high- performance inks and coatings which emit no VOCs during cure. However, because appropriate monomers and initiators have been developed only recently, the characteristics of these reactions and the structure of the resulting polymer films are not well understood. This research project will provide fundamental experimental and theoretical investigations of UV- initiated cationic photopolymerizations. Detailed profiles of the reaction temperature and the extent of reaction will be obtained using in situ time-resolved fluorescence and raman experiments, and the thermal, mechanical, and physical properties of the resulting highly crosslinked polymer films will be thoroughly characterized. Nuclear magnetic resonance spin diffusion experiments will be used to investigate the homogeneity and morphology of the polymer films. The goal of the theoretical effort is to develop computer simulations of the photopolymerization reactions which account for molecular mobility in a realistic manner. These simulations should provide insight into the development of the highly crosslinked network structure. The research will help evaluate the potential of these reactions for the development of high- performance, solvent-free inks and coatings.